SBIR Phase I: Immunoassay Bio-chip Based on a Magnetic Tunnel Junction Sensor Array

This Small Business Innovative Research (SBIR) Phase I project aims to develop a spintronic immunoassay technique based on an array of microscopic magnetic tunnel junction (MTJ) sensing elements. This spintronic immunoassay will use patterned arrays of magnetic sensors to detect tiny magnetized particles, which have been functionalized to bond to specific biomolecules. This technology is the beginning of the emerging magnetic immunoassay technologies.

The creation of new immunoassaying techniques will have a far-reaching societal and economic impact. The detection and identification of different biological entities and an increased number of detection and measurement techniques will lead to improved capabilities and greater economic and medical value. This technology will have an immediate impact in the health care as well as in homeland security arenas.